Mathematical Sciences: Nonselfadjoint Operator Algebras

9504359 Peters This project involves work on several problems involving the structure of nonselfadjoint operator algebras. These include direct limits of finite dimensional operator algebras. One of the principal tools is the Connes spectrum or analytic range for analytic algebras. The isomorphism class of certain nest algebras can be determined by a finite algorithm. It is proposed to improve and implement this algorithm. In another direction an investigation will be made of the notion of topologocal nilpotence. This concept has been recently studied for Banach algebras, in the context of operator algebras, such as nonselfadjoint crossed products. Nonselfadjoint operator algebras arise as triangular subalgebras of objects used by quantum physicists to study particle theory. The properties of such algebras and their connections with dynamical systems are questions we intend to investigate. In some cases there are computable algorithms. The goal of this project is to contribute to the theoretical understanding of basic mathematical structures. ***